Upgrade to DSV Alvin Motor Controllers

This project will result in improved operational and scientific performance of the DSV ALVIN which is operated by Woods Hole Oceanographic Institution as a National Facility jointly supported by NSF, the Office of Naval Research, and the National Oceanic and Atmospheric Administration. The reduction in weight by using titanium will greatly increase the scientific payload and the new electronics will give improved operation of the brushless motors.